Dissertation Research: Population Variation in VAM Fungi

The proposed study will examine ecological relationships among populations of vesicular-arbuscular mycorrhizal (VAM) fungi. The objectives of this work are to determine whether ecotypic differences exist among populations of these root endophytes and to examine their ranges of tolerence to environmental conditions. Common garden experiments will be employed to determine if population variation among VAM fungi is the result of genetic differentiation or phenotypic plasticity. Reciprocal transplant studies will be used to examine the ranges of tolerance of populations to environmental factors. Geographic isolates of Glomus mosseae, a well known VAM fungus, from a range of dissimilar environments are to be included in the experiments and will be cultured on the roots of sudangrass and yellow sweetclover. Both direct observations of the endomycorrhizal fungi and analysis of their effects on host plant growth and physiology will be employed to assay variation among and within G. mosseae populations. The results obtained from this work will provide valuable data on genetic makeup, geographic variation and physiological specialization in VAM endophytes. Further, this investigation will yield insights on the mechanisms of ecological adaptation in natural populations of fungi in general and eventually may be beneficial in the selection of strains for specific uses.